EFRI-MIKS: Deciphering and Controlling the Signaling Processes in Bacterial Multicellular Systems and Bacteria-Host Interactions

1137186 Ren
Intellectual Merit:
Bacteria are well known to obtain intrinsic tolerance to antibiotics and disinfectants by forming surfaceattached
sessile colonies embedded in an extracellular matrix, known as biofilms, and by forming
metabolically inactive cells, known as persister cells. Such intrinsic tolerance also facilitates the
development of multidrug resistance through acquired mechanisms, presenting a great challenge to
microbial control.
Despite the well recognized significance, research on biofilms and persister cells is still in its infancy.
Distribution of persisters in biofilms and the effects of environmental/host factors and cell-cell signaling
on such distribution and biofilm-associated stress tolerance are unknown, mostly due to the heterogeneity
in biofilm structure, spatial and temporal variation in gene expression, and redundancy in persister and
biofilm genes. The objective of this EFRI project is therefore to understand and manipulate the
multicellular and inter-kingdom signaling processes in such complex systems by addressing these key
challenges using well integrated multidisciplinary approaches.
Based on recent successes in surface engineering, patterned biofilm formation, systems biology and
molecular simulation, this research team will conduct the first-of-its-kind research to: (1) systematically
characterize persister formation during biofilm development, (2) identify the roles of key genes and
signaling processes in persister formation, (3) develop an unprecedented computational capability to
accurately predict signaling factor translocation through the extracellular matrix of the biofilms, and (4)
synthesize and characterize functional nanoparticles for controlled release of signaling modulators to
eliminate persister cells. A number of important questions will be answered for the first time. These
discoveries will have a transformative impact in designing more effective knowledge-based strategies for
the manipulation and control of bacterial multicellular behaviors and bacteria-host interactions.

Broader Impacts:
In addition to fundamental understanding of biofilm development and persister formation, the findings
from this study will also improve the general knowledge of bacterial physiology with the potential to shift
the paradigm of microbial control. Furthermore, the results of this research as pertains to deleterious
biofilms of pathogenic and corrosive bacteria can be extended to the development of better biofilm
systems of environmentally friendly bacteria, which have broad applications in bioremediation of toxic
chemicals and economical production of renewable biofuels. Due to the broad spectrum of problems and
opportunities associated with persister cells and biofilms, the proposed work will have significant impacts
on basic science, economy, biosecurity and health care.
Beyond any technical achievements, this project will also play an important role in transforming college
engineering education. Unlike traditional projects that focus on relatively narrow topics, this project
targets multicellular and inter-kingdom signaling, a highly interdisciplinary area. The advanced topics
associated with this research will provide invaluable materials to teach modern biotechnology, molecular
simulation, synthetic biology and bioinformatics, providing the students with crucial knowledge and skills
to address the scientific, engineering and societal challenges. This research will also create exciting
outreach opportunities and bring talented young people, especially underrepresented groups, into science
and engineering careers.